COMMONWEALTH: Architecture and Protocols for Scalable WWW Service

The phenomenal growth of the World Wide Web is imposing considerable strain on Internet resources and Web servers, prompting numerous concerns about the Web's continued viability. The success of high-performance Web servers in alleviating these performance problems is ultimately limited, unless Web services are designed to be inherently scalable. The Commonwealth project aims to design, implement, and evaluate a prototypical architecture and a set of associated protocols for scalable Web services. The Commonwealth architecture for hosting scalable Web services allows scalability through (1) parallel processing on tightly-coupled nodes within a Web site, and (2) load distribution across loosely-coupled Web sites. Commonwealth's underlying philosophy is to achieve a WEALTH of performance through the use of COMMON components, and to do so along an incremental upgrade path. The Commonwealth protoype will catalyze basic research in four main areas: (1) Data placement (caching, prefetching, and dissemination protocols); (2) Resource management (scheduling, load balancing, and admission control protocols); (3) Networking (routing, packet redirection, and connection migration) and (4) Middleware services (replication and resource discovery). These problems will be addressed with particular attention to the issue of high-variability, which---in previous work by the principal investigators---was shown to pose significant problems for the design of Internet-based systems.